Magnetic Field Excursions and Related Secular Variation During the Brunhes Epoch (0-780,000 YBP)

New initial paleornagrictic results froni ODP Leg 72 estimate the pattern of secular variation for the entire Brunhes Epoch and identi I'v 13 Brunhes-aged magnetic field excursions. This is the first data set that allows ~i directional look at secular variations over such a ]on - time interval and a! lows consideration within the framework of excursions and paleointenslt~. Detailed anilysis ol'thc individtitif excursion records suggests that there are two basically different types ol, cxcursions, one t\ t~c that is closely related to normal secular variation and another type that nilght he considei Cd an aborted reversal. The project will analyze and s\ nthesize PIVVIOLIS palcornagnetic rcults and make selective new discretesample ineastirements on cleven exci-ii-sions and fh(,iii, contiguous secular variation.